Epitaxial Growth of Transition Metals and their Aluminides on Aluminum Surfaces

9409205 Smith The objective of this research is to identify the fundamental physical parameters which determine the atomic structure of thin transition-metal films deposited on aluminum single crystal surfaces. The experiments are designed to characterize the early stages of epitaxial growth and compound formation in the limit of very thin overlayers. The selected transition metals (titanium, nickel, iron, cobalt and chromium) span a range of values for the mismatch in substrate/overlayer lattice structure and for the chemical formation energy of the transition- metal aluminide. The research focuses on those systems which appear promising for growing epitaxial structures. The measurements characterize the degree of ordered growth or substrate disruption at the interface using high-energy ion backscattering and channeling, low energy electron diffraction, and x-ray photoelectron diffraction. Core- level binding energies measured with x-ray photoemission serves to identify compound formation at the interfaces. Monte Carlo computer simulations, using the Embedded Atom Method for calculating total energies, is used as a guide in the structure analysis. Research results will provide a better understanding of and ability to predict atomic structure at metal/metal interfaces. %%% Understanding and controlling the atomic structure of supported thin films of iron, cobalt and chromium is important for tailoring the magnetic properties of these films. The thermal stability and lattice matching characteristics of several of these aluminides make them excellent candidates for epitaxial metallization on III-V semiconductors, such as gallium arsenide and Indium Phosphide (InP). ***